Communication over Wireless Fading Channels: A Modern View

The design of efficient wireless communication systems relies on a
deep understanding of the basic characteristics of the underlying
channel. The most fundamental and unique characteristic of wireless
channels is the random time-variation of the channel strengths, a
phenomenon known as fading. Communication over fading channels has
been a topic of study since the 60's. A very different view of the
problem, however, emerges from recent research. The traditional view
of fading is that it is a source of unreliability that has to be
compensated for by various diversity techniques. The modern view is
much more
powerful and considers fading as a source of randomization from nature
that can be exploited to get very significant capacity boost.

The research project addresses several key problems within this
modern paradigm. They will be centered around two areas: 1)
opportunistic communication : the dynamic rate and power allocation
over the dimensions of time, frequency, antennas and users
so that transmission is done when and where the channel is strong;
2) multi-antenna communication: the use of multiple transmit and
receive antennas to increase the number of degrees of freedom available
for communication in richly scattered fading environments. The issues
studied are focused on how the random fading can be exploited even in
the face of
channel uncertainty, and the interplay between the modern and
traditional views of channel fading.